PREPnet Internet Expansion Project

9411364 Shaulis The Community College of Allegheny County requests support from NSF for connection of its campus network to PREPnet. PREPnet is the midlevel network located in the state of Pennsylvania. PREPnet will provide operations management and information services and it will give the Community College connection to the Internet, a collection of interoperable networks that connect most research and education organizations in the United States The colleges need greater functionality and network speed to be able to access supercomputers, libraries, and make file transfers along with being able to implement a more reliable mail system. The connection will benefit the faculty research, staff and students. This is also a unique opportunity for the school to explore innovative educational resources.